CER: Import PCK: What 10K Novice Teachers Can Learn from Teachers with 10K Hours of Experience

Harvey Mudd College will convene expert computer science (CS) educators to collaboratively document refine, and publish pedagogical content knowledge resources related to ninety topics in computer science. The central goal of the project is to document, validate, and promote CS pedagogical content knowledge, the combined knowledge of both the CS learner and CS content that enables an expert teacher to teach well. Resources developed will enable novice teachers to perform the actions of a more advanced CS teacher, such as incorporating new teaching practices, anticipating students’ difficulties, and building upon students' strengths. In addition to this practical contribution, this research will identify open research questions in CS education.